Diophantine Approximation and Nevanlinna Theory

The investigator studies diophantine approximation from the point of
view of the analogy with value distribution of holomorphic curves (Nevanlinna
theory), and vice versa. Specifically, this work includes:
(i) work on relating Faltings' 1983 theorem on the Shafarevich conjecture
to Thue's method,
(ii) work on finding further applications of the geometric logarithmic
derivative lemma,
(iii) a search for a number-theoretic counterpart to the lemma on the
logarithmic derivative, and
(iv) technical improvements in proofs using Thue's method (Dyson's lemma).

This project involves number theory (specifically, solutions of polynomial
equations in integers or rational numbers, as well as related inequalities)
and value distribution theory (inequalities satisfied by power series
functions of one or several complex variables). These two seemingly
disparate areas of mathematics have many phenomena in common. This has
been partly explained by a formal analogy between the two fields, which
has led to new conjectures, shorter proofs of existing theorems, and new
theorems. The present project uses this analogy to further elucidate
the underlying structure of number theory, value distribution theory,
and the analogy between the two fields.